Analysis of Revertants of a Yeast Mitochondrial Promoter Mutant

The objective of the research described in this grant is to understand the transcriptional process for genes encoded on mitochondrial DNA in yeast. A yeast mutant defective in transcription of subunit II of cytochrome c oxidase has been isolated. Subunit II DNA of the mutant contains a single nucleotide change in the transcriptional promoter. The mutation apparently interferes with recognition of the sequence as a transcriptional promoter. We have isolated nine revertants of the mutant which have recovered the ability to respire. Some of these revertants have not recovered normal growth rates so recovery of function cannot be the consequence of restoration of the normal sequence but must involve compensatory changes. Classical genetic techniques will be used to determine if the compensatory changes are found on nuclear or mitochondrial DNA. For mitochondrial revertants, genetic mapping experiments will localize the specific region of mitochondrial DNA carrying the compensatory change. The region will be sequenced and compared to the normal region to identify the specific alteration. For nuclear revertants, the altered genes responsible for recovery of function will be identified by fragmenting DNA from the revertant strains, cloning those fragments and introducing the clones into the original mutant. Clones which restore respiration must contain the altered gene and will be molecularly characterized to understand how restoration of function occurred. Analysis of the revertants will provide information about other sequences able to function as promoters of yeast mitochondrial transcription and about other gene products required for the process.